Oxidation-Reduction and Homogeneous Catalysis of Organic Compounds by Metal Species

This research focuses on thermally and photochemically induced electron transfer and electrophilic addition reactions in solid matrices. X-ray diffraction analysis of donor-acceptor doped solid matrices will be used to correlate matrix structure and its changes with dopant reactivity in order to develop a database useful in achieving reaction control, enhancing charge separation, and increasing reaction product lifetime. Correlating solid state structural changes with observed reactivity offers graduate and postdoctoral students a unique opportunity to become familiar with modern fast reaction and structural analysis techniques. With this Renewal, the Organic and Macromolecular Chemistry Program supports Professor Kochi's studies of donor-acceptor reactivity in solid matrices. Professor Kochi will focus his research on correlating the structural changes that occur in the matrix with donor-acceptor reactivity and product stability in order to develop the database needed to utilize the host matrix as a means to control reactivity in the solid state. Graduate and postdoctoral students carrying out the experiments will gain experience in modern fast reaction techniques and x-ray structural analysis. / ¥╝Á_Á>┤?┐¢ ╣_║/│¥ ╣> ?┐╝ /▓╣%╣¥` ¥? _/>╣║┐%/¥Á │©Á_╣│/% _/¥¥Á╝ />┤ │©Á_╣│/% ╝Á/│¥╣?>¢